US Community Access to the Large Millimeter Telescope

Astronomical observations of celestial sources at millimeter wavelengths address a broad range of important scientific questions. The Large Millimeter Telescope Alfonso Serrano (LMT) is a 50-m diameter millimeter-wave radio telescope for observations at wavelengths from 4 to 0.8 mm. The telescope was built by a binational collaboration of the University of Massachusetts Amherst (UMass) and the country of Mexico, with the Instituto Nacional de Astrofisica, Optica, y Electronica (INAOE) having the leadership role. The LMT has the largest single-dish effective area in the world in its wavebands. Equipped with the NSF-funded TolTEC instrument, the LMT can be used to address a wide range of fundamental questions, including studies of galaxy evolution, time domain science, star formation, and interstellar medium processes in the Milky Way and nearby galaxies. The LMT also plays an important complementary role to the Atacama Large Millimeter-submillimeter Array (ALMA), a major NSF-supported facility. LMT’s very large aperture also makes it an essential anchor for the Event Horizon Telescope, an international very long baseline interferometer capable of the highest angular resolution currently possible. Continued LMT access will support and aid training and research experiences for students and early-career scientists and engineers.

LMT covers ALMA Bands 4-6 (130-300 GHz). With the new TolTEC instrument, a multi-wavelength continuum camera and polarimeter with 7000 pixels, the LMT enables surveys of the sky thousands of times faster than ALMA. In addition to providing a uniquely sensitive facility for the study of dust-obscured galaxies and star-forming regions, LMT instruments enable spectroscopy of key cooling lines such as CO, [C I], and [C II] in distant galaxies, offering the best chance to determine their redshifts and to probe the physical and dynamical properties of the gas fueling their activity. Time-domain events, frequently involving source expansion and transition between optically thick and thin phases, are ideally probed at early times in TolTEC bands, positioning LMT to play an important role for follow-up of NSF’s Rubin and NASA’s Roman survey facilities. For the last several years, fifteen percent of the total observing time available on the LMT, corresponding to half of the time controlled by UMass, has been provided to US-based observers through an annual proposal competition. This award supports one year of the minimum possible activity needed to continue operations of this major NSF-Mexico scientific collaboration and maintain U.S. community access, providing a bridge to the proposed longer-term collaboration opportunities.